Conference on Organization of the Bacterial Chromosome; May 23-26, 1988; Pine Mountain, GA

Organization and structure of the bacterial genome is a broad subject, with many areas of microbial molecular biology applying to several aspects of the subject. Researchers from different areas of molecular biology or bacterial genetics who share an interest in the bacterial genome viewed as a whole have interests that stem from quite different perspectives, and tend to travel in non-overlapping scientific orbits. This proposal seeks support for a conference that would provide an opportunity for such scientists to get together and exchange information and ideas on the organization and function of the bacterial chromosome. Subjects to be covered at the meeting would include the organization of DNA in the cell, the structure of the nucleoid, the involvement of nucleoproteins, the effect of chromosomal structure on gene expression, the plasticity of the genome in terms of genetic change, the existence of constraints on such change, the control of global cellular functions, and a summary of the progress made in assembling genetic maps, physical maps and nucleotide and amino acid sequences, together with a consideration of problems and solutions to achieving effective data management. A meeting of this kind has not been held to date; it would seem to have high potential for generating fresh intellectul exchange among scientists whose paths seldom cross, as well as among those who are engaged in asking similar questions about structure and function of the bacterial chromosome.